A mineral-physics based model of mantle electrical conductivity

Many of the tectonic processes expressed at Earth's surface are the
manifestation of processes rooted deeper within the planet. Variations in
temperatures and composition of the upper mantle (the layer below the
crust) combined with the forces that drive motion contribute to the
deformation patterns at the surface and/or melt generation (possibly
resulting in volcanoes). Models of the mantle further our understanding
of the evolution of these processes, but these models require accurate
estimates of temperature and composition of the upper mantle---neither
of which can be measured directly. To estimate the state of the mantle,
geophysical models of a physical property sensitive to temperature and
composition are typically used as a proxy (e.g. seismic velocity and electrical
conductivity). Using electrical conductivity as a proxy requires
laboratory measurements on minerals at a range of conditions expected
for the mantle. Most interpretations of upper mantle
electrical conductivity are based only on the mineral olivine,
which comprises 60-70% of the mantle, and often ignore the possible
influence of the remaining mineral components. While olivine typically
dominates the electrical conductivity, there are cases, particularly
when bound water content is high, where electrical conductivity
contributions from orthopyroxene and clinopyroxene, the next most
abundant upper mantle minerals, may be disproportionate to their volume.
This project will involve the collection of electrical conductivity on
mantle pyroxenes in a laboratory controlled setting over a wide range of
physical conditions, leading to an improved model of dry pyroxene
conductivity. This model will help improve current,
and aid in future, interpretations of mantle conductivity models and the
processes that potentially drive melt generation and surface dynamics.
This project will also include the building of a conductivity apparatus
than can be used in future studies as well as the training of a postdoc.

There have been few electrical conductivity studies on orthopyroxene and
fewer on clinopyroxene. While they suggest anhydrous conductivity of
orthopyroxene is similar to that of olivine, with clinopyroxene about one
order of magnitude lower, they were conducted along predetermined oxygen
fugacity paths, thus limiting their application to specific conditions. This project
will focus on the collection of electrical conductivity and thermopower
measurements on mantle derived pyroxenes over a wide range of
temperatures and oxygen fugacities relevant to the mantle. By
collecting thermopower measurements in tandem with electrical
conductivity at several oxygen fugacity states and temperatures it
will be possible to estimate the concentration and mobility of the
various charge carriers and build point defect models that extend
conductivity estimates to a much larger range of mantle conditions. A
similar model for olivine has become a standard for comparison with
laboratory experiments and repeatedly verified in recent experiments.
In the past few years there has been a great deal of attention paid to
the effect of water on olivine conductivity. However, water partitioning
experiments show that pyroxenes may hold ten times as much bound H2O as
olivine. Apart from contributing to bulk composition, pyroxenites (rocks
with >50% pyroxene) are found regionally in veins which are important to
the geochemical budget, and may be responsible for the "garnet
signature" in mid-ocean ridges and ocean island basalts. If such veins
form interconnected networks they would have a disproportionate effect
on mantle conductivity. A reliable anhydrous pyroxene conductivity
model developed as part of this study will aid interpretation of future
electrical conductivity experiments on hydrous pyroxenes, as well as
improve the interpretation of mantle conductivities inferred from
electromagnetic sounding.